CC* Data Storage: KoaStore: A High Performance and Flexible Research Storage Resource

The University of Hawai‘i’s ‘CC* Data Storage: KoaStore - A High Performance and Flexible Research Storage Resource supports data and computationally intensive research, education and practice across the University of Hawai’i (UH) ten-campus system. KoaStore provides UH faculty, researchers and students state-of-the-art data infrastructure focused towards machine learning, artificial intelligence and large scale simulation. KoaStore enables a larger scope and scale of analysis by providing 4.4PB of high speed Lustre storage platform accessible from all local, regional and national compute resources. KoaStores’s 200Gb HDR infiniband network enables KoaStore to achieve I/O speeds up to 96Gb/s and leading to increased computational throughput for I/O heavy workflows on local Mana and Koa high performance computing resources. KoaStore’s external network connections increase data transfer speeds to national, commercial cloud and academic resources via the combination of 100Gb/s data transfer node connection and high speed parallel file system, enhancing end-to-end big data workflows. The strategic partnership with the Open Science Data Federation allows for KoaStore to serve the national research community as well as provide a gateway to a compute platform UH researchers can access their data on with national computing resources.

Integration of KoaStore’s high speed file system with the regional Jestream2 NSF Cloud infrastructure hosted at the University of Hawaii allows researchers to easily span computing environments and modalities between the cloud and local computing resources to support new deep learning and artificial intelligence workflows, visualizations and applications. Further, the KoaStore platform aids hands-on training in data science and computational science for the next generation of researchers and data scientists through partnership with the Hawaii Data science institute and local community for workshops and classroom access.